Southeastern Logic Symposium

This award supports participants of the Southeastern Logic Symposia in 2020-2022. The first meeting will take place February 29-March 1, 2020 at the University of Florida, Gainesville, and there will be one 2-day meeting per year, taking place at the University of Florida in early March. The Southeastern Logic Symposia series provides a forum for set theorists and computability theorists to meet on a regular basis and the interactions between the two fields keep producing new mathematical ideas. The conference series is also unique in a geographic respect: in the south-eastern region of the US, no other regular mathematical logic meetings take place.

Each meeting will feature three plenary talks given by senior speakers in mathematical logic, and two special sessions, one in computability theory and another in set theory. The organizers expect roughly 30 participants each year. More details about the symposium will be available at https://people.clas.ufl.edu/zapletal/south-eastern-logic-symposium-2020/